IRES: From the Roots to the Roof - the Anatomy of the Volcanic-Magmatic-Plutonic System

The near-surface roof of volcanic systems is often considered geologically simple. Lava erupts from depth and flows out at the surface. This project examines whether the evolution of the system is more complex, with multiple injections of molten rock over time transported vertically and laterally toward and away from the central vent of the volcano. Documentation of these patterns could indicate that this more complex model may be the norm, leading to a transformative discovery of the most abundant volcanic constructs on Earth. The project will also study whether primary features of the roots of volcanic systems are often preserved, providing a mechanism to track the growth of the deeper parts of the volcanic system. At least 15 students from New Mexico Highlands University - a Hispanic Serving Institution - and other participating universities - also Hispanic Serving Institutions - will study volcanic systems in the Czech Republic to achieve the project goal of fully characterizing the anatomy of volcanoes from the deep roots to the near-surface roof. Geology graduate and undergraduate students will expand their research skills by working collaboratively with an international team of geologists. A small team of media arts students from underrepresented backgrounds will document the project to share the overall experience of international research with a broad audience through public outreach programs.

Through this 3-year project, undergraduate and graduate students will use a unique multidisciplinary approach to geologic investigation that involves field- and laboratory-based research to better understand and challenge long-standing volcano growth models. While building their research experience, the students will advance understanding of volcano anatomy. In the Jièín Volcanic Field in the Central Bohemian Paradise (Èeský ráj), Czech Republic, natural erosion and quarrying activities from medieval times through today have unearthed many volcanoes to expose levels between 100 m to 4 km below the original surface of the volcano. Teamed with mentors from the Czech Republic, France, and Poland students will interpret the magma flow pattern, as well as the physical process of dike intrusion, cryptodome formation, and magma breakout at the surface. In terms of the roots of the system, students will focus on well-exposed, deeply eroded volcanic-plutonic systems near Prague and in the northeast Czech Republic. The project team will use methods such as: 1) primary field observations, structural measurements, sample collection for petrology, economic ore genesis, paleomagnetic, and anisotropy of magnetic susceptibility analysis; and 2) geophysical surveys to map the subsurface structure. Team experts contribute skills sets including physical volcanology, volcanostratigraphy, geochemistry, exploration geophysics, magma emplacement mechanics, structural geology, and economic ore mineralization. Collectively, these analytical tools will be used to evaluate the volcanic system in the field and a laboratory setting. Engaging the skills of underrepresented media arts students in documenting the learning and research process will contribute to building the next generation of media arts and geology students, instilling in them a sense of global competency.

This project is co-funded by the Directorate for Geosciences, Division of Earth Sciences.